Mathematical Epidemiology of the Respiratory Viruses

This research investigates the epidemiology of the respiratory viruses. These viruses are the organisms that cause the common cold and the flu, and are an important cause of illness in infants and young children. The epidemiology of the respiratory viruses differs from that of childhood diseases such as measles and chickenpox in that each person can become infected more than once with a given respiratory virus, whereas in diseases like measles a single infection induces a lifelong immunity to reinfection. The consequences of such repeated infections have not been systematically studied, and that is the goal of this research. Mathematical models and computer simulations will be used to achieve this goal. The concept of a threshold host population size is important in epidemiology. This threshold is the smallest host community in which the disease can be maintained continuously--for example, measles cannot be maintained continuously in communities smaller than roughly 300,000 individuals. The existence of this threshold is one of the important predictions that has been derived from the current models, and it has been exploited in various ways to apply the current models to data. By contrast, a preliminary model investigated by Dr. Pease has no threshold host population size. The lack of a threshold seems to be related to the fact that repeated infections with the respiratory viruses are possible. Studying these models that lack a threshold host population size will challenge in a major way the existing theory.